Gordon Research Conference on Temperature Stress in Plant, Oxnard, California, January 29 - February 3, 1995

9414040 Thomashow This award provides partial financial support for the 1995 Gordon Research Conference on Temperature Stress in Plants. The meeting will be held at the Casa Sirena Marina Hotel, Oxnard, California, January 29 - February 3, 1995. Funds will be used to defray the expenses of junior scientists (graduate students and postdoctoral researchers), and invited speakers. The 1995 Gordon Research Conference on Temperature Stress in Plants will be the sixth meeting of the conference; it was first held in 1984, and since 1989, has met on a biennial basis. The overall goal of the conference is to foster the exchange of ideas and research findings among a diverse group of scientists studying plant temperature stress from a wide variety of perspectives. Scientists who attend this meeting include agronomists, horticulturists, plant breeders, ecologists, plant physiologists, biochemists, biophysicists and molecular biologists who are affiliated with universities, private and governmental research laboratories, and commercial companies from both North America and overseas. As in the past, the 1995 Gordon Conference will include sessions covering the latest developments in fundamental aspects of plant temperature stress (e.g., temperature stress proteins, temperature signal transduction, whole plant responses to temperature stress, breeding for increased temperature stress tolerance). In addition, the 1995 conference will have two novel features. One will be the development of a particular theme over the course of the meeting: the role of membranes in temperature stress tolerance. The objective is to explore the current state of knowledge of the regulation and function of plant phospholipids and potential strategies to modify phospholipid composition to improve the temperature stress tolerance of plants. The other novel aspect will be the inclusion of a "cross-over" session examining the similarities and differences in mechanisms of temperature and drought tolerance. This session will involve presentations by investigators working on tolerance to drought and desiccation and provide a bridge to plant scientists working in related areas of environmental stress, but outside of temperature per se. ***